MRI: Acquisition of a Research Network for Distributing Computing

EIA-9871345 Paul, Jerome L. Bhatnagar, Raj K. University of Cincinnati MRI: Acquisition of a Research Network for Distributing Computing The Department of Electrical and Computer Engineering at the University of Cincinnati, in cooperation with the College of Engineering and the State of Ohio, proposes to acquire a high-speed research network of computer workstations. The testbed will be used to support the needs of a variety for distributed computing systems and network protocol research projects. The testbed will include a cluster of high-performance workstations locally connected by a high-speed LAN, with wide area connectivity provided to the Statewide ATM research network OCARNet. The projects supported by the proposed network will exploit fundamental interconnections between theory, systems and applications of distributed computing, and include: validation of routing schemes in distributed computing environments; optimistic compiler optimizations; distributed decision support and data mining, and development of a collaborative computing environment.